Experimental Particle Physics

The physics activities of the Northeastern University group in the recent past have concentrated on electroweak physics with complementary analyses taking place at several detectors at the energy frontier. The group plans to continue to work within this framework in the proposed grant period, taking advantage of the new data to come from Run 2 with the upgraded Fermilab detector D0. The group also plans to continue high sensitivity searches for processes which are either rare or forbidden in the Standard Model. Hardware and software activities are also concentrated in areas in which the group has longstanding expertise.

Interdisciplinary and outreach activities, including Quarknet and a CERN RET site, have been very successful.